NYI: Surface Chemical Factors Governing Colloidal Transportin Porous Media and Natural Systems

This is an award to provide support for research on a model system for investigating the surface chemical factors that govern the transport of colloids in porous media that function as groundwater aquifers. The award is in accord with conditions contained in NSF 91-112, Young Investigator Awards FY 1992 Program Guidelines for Submission of Nominations. Factors that control the transport and deposition of fine particles in porous media are of interest because of the role they play in controlling the movement of pollutants through aquifers and other natural systems. Results of this research are expected to be applied in engineering design of groundwater supply and pollution abatement systems.